Workshop on Algorithmic Number Theory

A five-day workshop on recent developments in algorithmic number theory will be conducted for 35 college and university faculty. The workshop will introduce participants to topics that can be used to enhance undergraduate courses in number theory, algebra, and the theory of computation. It will include ten one-hour expository lectures by Eric Bach, computer assignments on the topic, and discussions among participants about inclusion of these topics in their classes. The lectures will discuss classical algorithms in number theory, algorithms for finite fields, and methods for primality testing, factoring, and discrete logarithms. Besides their intrinsic interest to number theorists, these algorithms are useful in cryptography, pseudo-random number generation, and computer algebra. Other applications will also be discussed.